CAREER: Nectar chemistry and ecological and evolutionary tradeoffs in plant adaptation to microbes and pollinators

Plants interact with a variety of organisms. The flowers and the nectar plants produce are adapted to attract beneficial organisms like bees or hummingbirds. However, microbes like bacteria and fungi also inhabit flowers and can reduce plant reproduction. Plant traits can reduce microbial growth in nectar, but this may also reduce pollinator visitation. This project will investigate if plants that are pollinated by different organisms (e.g. birds vs bees vs flies) differ in their ability to reduce microbial growth and if nectar chemistry is associated with microbial growth. This project will examine if nectar traits can be used to breed plants to be more resistant to harmful microbes without reducing attraction to pollinators. Resistance to microbes is beneficial in agricultural contexts where floral pathogens can limit food production but crops still rely on pollination.

This research will link variation in plant phenotype to microbial abundance and species composition, and microbial effects on plant-animal interactions. This project will use a tractable system: the microorganisms growing in floral nectar, which can influence floral visitors and plant reproduction. The underlying hypothesis tested is that plant traits that facilitate or reduce microbial growth, and the community context (e.g., presence of pollinators) influence ecological and evolutionary outcomes. The research activities will be performed using 1) a community of co-flowering plant species and 2) genotypes within Epilobium canum. Experiments will characterize variation in microbial growth, nectar chemistry, and microbial effects on plant reproduction and floral visitor behavior and the interactions of these factors. Experiments and analysis will reveal how variation in nectar chemistry is associated with microbial growth and species composition in nectar, and subsequent effects on plant-pollinator interactions including plant reproduction. Experiments across Epilobium genotypes will elucidate how microbes affect microevolution of floral traits in a community context. This project will engage students from a large undergraduate class to participate in practitioner-motivated research projects. Students will also participate in outreach to local communities on pollinator-friendly plantings for horticultural and landscaping. The project will support students recruited from diverse and underrepresented backgrounds to participate in independent projects related to project objectives.